Workshop on New Visions for Software Design and Productivity

ABSTRACT
Proposal: CCR-0138554
PI: Janos Sztipanovits (Adam Porter)
Institution: Vanderbilt University (U Md)
Title: Workshop, December 13-14, 2001, on New Visions for Software Design and Productivity

The project supports costs of travel and local arrangements for a workshop to define a future vision for Software Design and Productivity (SDP) research. The workshop is hosted by Vanderbilt University on December 13-14, 2001, bringing together 50 to 75 software researchers to discuss the directions for research over the next 10 years to improve software development productivity and quality. The participation is determined by a national call for white papers on SDP research and a review by a Program Committee established for that purpose. Successful applicants are invited to join Federal agency representatives and policy makers to identify research needs, capabilities, and shortfalls through open discussions. The final product of the project is a full report on the outcomes of the workshop that will be made available to Federal SDP R&D program managers and the community at large.